Computational and Proof Complexity Bounds

This research addresses problems in a variety of computational settings, In each case, a significant goal of the research is to obtain new lower bounds on the problems' complexity. The prime computational setting of interest is that of the complexity of proofs in propositional tautologies is fundmental in that it is equivalent to the NP versus co-NP question. Analysis of the complexity of specific methods of proof is important in its own right as well as for practical questions of automated theorem- proving and may yield insight into the NP versus co-NP question. The research in this area is concerned with extending the range of proof systems in which complexity bounds are currently known, with particular emphasis on the study of randomly chosen k-CNF formulas. Based on past experience, methods from the study of circuit complexity are expected to be useful in this analysis. The second setting of interest is the complexity of computations on random access machines able to operate on word-level quantities at unit cost. Surprisingly efficient algorithms for a number of problems, such as sorting, have been shown in this model. The goal of the research in this area is to understand the limits of the algorithmic improvements possible in this model. The final setting is that of the complexity of representing Boolean functions so that they are easy to manipulate and compare, important properties for symbolic model checking algorithms. The major question to investigate in this area is whether representations which are easy to manipulate and compare can efficiently represent non-linear as well as linear functions.